Presidential Faculty Fellows

9453422 Liu Develop intelligent diagnostic methodologies to detect incipient failures in power system equipment using adaptive recognition techniques and artificial neural networks. We will continue the work of power system equipment diagnosis using artificial neural networks. The previously developed methods and experiences will be widely tested. An important task for failure diagnosis is to determine the most representative parameters of equipment status, and the most likely cause of a particular failure or performance deterioration. These will be achieved through sensitivity tests of individual or a group of parameters in ANNs. Although ANN- based diagnosis systems are problem-dependent, some general rules on input feature selection, ANN architecture, and training algorithms will be developed for use as guidelines in similar applications. Develop dynamic contingency analysis and control algorithms using Satellite-Based Phasor Measurement Technology. Develop real-time dynamic models in order to investigate the possibility of tracking power system dynamics in real-time. Establish research programs in characterizing harmonic noise in power systems by developing an integrated probabilistic harmonic flow algorithm that considers the nonlinear dependence of harmonic voltages and currents, and random variations of operation modes and switching status of harmonic sources. More effort will be devoted to develop algorithms for identifying harmonic sources based on limited measurements for multiple circuit nodes. The computer animation packages for teaching difficult concepts will be expanded and more complex field problems and concepts will be illustrated with animation. Multimedia tools will be gradually added to the conventional classroom teaching. The power engineering core course materials will be updated and revised in order to establish an ideal knowledge mix for today's Electrical Engineering graduates. The Power Quality Teaching and Research Lab are being planned and lab equipment are being researched. It is planned that new lab equipment will be added for harmonic measurements. This will allow us to begin data gathering and analysis. Also, lab experiments will be developed for students to use in the new power quality course. ***